Mathematical Sciences: International Symposium on "The Legacy of John von Neumann," Hempstead, New York; May 29- June 4, 1988

This project is a symposium in the honor of John von Neumann and is organized by the American Mathematical Society and sponsored by the American Mathematical Society and the Society of Industrial and Applied Mathematics. The symposium will be held at Hofstra University in May and June of 1988 and will fall on the 85th anniversary of Neumann's birth. John von Neumann died in 1957. In addition to support by the National Science Foundation, both IBM and the Sloan Foundation will contribute support to this research symposium. Neumann is known as "the father of the modern computer" and contributed significant research to many fields including computer science, logic, ergodic theory, fluid mechanics, quantum mechanics, atomic energy, algebra, measure theory, econometrics and ordnance. The symposium will review the many accomplishments to science of John von Neumann and will discuss the current state of research in the mathematical fields that he helped to develop.